Teaching Physics Using Interactive Digitized Video

The purpose of this project is to offer a two-week workshop on Teaching Physics Using Interactive Digitized Video. The workshop: (1) fosters a discussion and formulation of new strategies for the teaching of physics using the capabilities of interactive digitized video technology; (2) enables 30 physics professors to become skilled in the use of interactive digitized video for the teaching physics courses for undergraduates; (3) helps physicists develop lessons that change the present physics content using the existing interactive digitized video software and hardware; (4) prepares them to lead local, regional, and national workshops on new science content using interactive digitized video technologies; and (5) makes the new interactive, digital video physics lessons developed by the workshop participants available to physics educators throughout the country.